Monitoring Queues Without Observing Them: A New Technology For Industry

This project is funded as a Phase I award under the 1988 Small Business Innovation Research Program Solicitation. The purpose of this research is to develop a queueing model that provides for dynamic readjustment of queue management. The scientific merit of the research is high and the commercial applications are considered to be attractive. The proposed research could provide useful information for a wide number of applications and, in particular, has the potential for making an important contribution to the allocation of computer resources.